Fourier Transform Infrared Spectroscopy in the UndergraduateChemistry Laboratory Curriculum

A Fourier Transform Infrared Spectrophotometer (FTIR) is being used by the Chemistry Department of the University of Wisconsin-Oshkosh to introduce chemistry students to the infrared techniques of data acquistion and manipulation, spectral storage, searching, and signal enhancement. This is being accomplished by introducing several new laboratory experiments, updating existing ones and offering expanded opportunities in undergraduate research. This curriculum development is having a direct impact on the physical chemistry, instrumental, inorganic, and spectroscopy laboratories and will significantly update the training of students in the area of Infrared Spectroscopy.